A Proposal for Research on The Well-Founded Semantics for Knowledge Bases

This project investigates the properties of new semantics for possibly unstratified knowledge bases, called the well.founded semantics. The study addresses theoretical issues that have bearing on the usability and implementability of the semantics. These issues include the expressive power of semantics, compared to alternatives: algorithms for ecognizing programs that can be implemented efficiently, and algorithms for executing such programs. The implementation of prototype analyzers and translators will also be initiated.